SunRISE: Cyclic and Long-Term Irradiance Variations of Sunlike Stars--Gauging the Sun

This comparison of solar variability with stellar analogs broadens the community's understanding of variability throughout the Sun's 11-year activity cycle. Researchers have observed the potential for long-term brightness variability on 41 'sun-like' stars. Their results show that changing visual brightness and magnetic activity are not simply correlated, as presumed in the reconstruction of long-term solar irradiance fluctuations from sunspot and other solar data. This extension of stellar observations provides an unbroken set of precision photometric measurements, and enables comparisons of magnetic and brightness variations of the Sun with those of similar stars. The research has direct impact on global change, as it provides estimates of the Sun's historic and future variations.